RUI: Molecular Analysis of PHB/V Biosynthesis

Poly-B-hydroxyalkanoates (PHA's), polymers found in many bacteria, have attracted considerable interest in recent years because they exhibit biodegradable thermoplastic properties. The physical properties of PHA polymers are dictated by the number of carbons in their monomeric unit. For instance, poly-beta-hydroxybutyrate (PHB= C4 monomeric unit) is much more flexible. For this reason, there is considerable ongoing research in the development of the PHB/V copolymer. The bacterium Alcaligenes eutrophus is one of the first bacteria shown to be capable of producing either PHB or PHB/V, depending on the feedstock. The genes for polymer synthesis in A. euthrophus have been cloned into Escherichia coli by our research group where we have employed them to produce large intracellular deposits of PHB. In initial experiments using standard E. coli strains we have not been able to detect copolymer synthesis, even when the feedstock is altered to stimulate PHB/V synthesis. However, recently we were able to obtain copolymer synthesis employing an E. coli mutant. Preliminary results indicate that copolymer synthesis in E. coli is similar to that found in A. eutrophus. The purpose of this research is to further develop our knowledge of PHB/V synthesis and PHB/V genetics using the newly develop E. coli system. This research will be done by conducting a comprehensive survey of bacteria that produce primarily PHB and PHB/V, cloning of selected PHB/V genetic pathways, analysis of these pathways in E. coli capable of PHV production, and manipulation of copolymer synthesis and structure using genetic techniques.